Conference Grant: 2001 Cold Spring Harbor Laboratory Neurobiology of Drosophila Cold Spring Harbor, NY: October 3-7, 2001

Conference Grant: 2001 Cold Spring Harbor Laboratory Neurobiology of Drosophila Cold Spring Harbor, NY: October 3-7, 2001